Symposium Support - Free Radical Chemistry in the Environment

The objective of this Symposium is to bring scientists and engineers, working in the area of free radicals, together to create an opportunity to learn from each other the newest ideas and concepts in free radical chemistry and engineering. To achieve this objective we have put together a Symposium "Free Radical Chemistry in the Environment" that consists of five oral and one poster session with a total of 113 presentations.
And, the Poster Session is "Free Radical Chemistry in the Environment."
Priority support will be given to faculty early in their careers, students and those participants that fall into "under-represented" groups.

An added dimension to this symposium will be through publishing the papers in the peer reviewed literature, future research directions and will be emphasized. Papers from the Aquatic Photochemistry sessions (oral and posters) will be submitted to Aquatic Science and the organizing committee (appropriate personnel) will be the Guest Editors. Papers from the Advanced Oxidation Processes sessions (oral and posters) will be submitted to ASCE Journal of Environmental Engineering and the organizing committee (appropriate personnel) and Dionysios Dionysiou (University of Cincinnati), a CAREER awardee will be the Guest. This is the first Symposium of its kind. The co-PI is a woman and Pecase awardee.